Graduate Manufacturing Engineering Traineeships for Defense Workers

9408829 Barrows ABSTRACT Graduate Manufacturing Engineering Traineeships for Defense Workers Syracuse University offers Master of Science programs in Manufacturing Engineering and in Engineering Management. TRP funds will provide traineeship stipends for 18 displace defense industry engineers to participate in these programs along with tuition and health insurance. The M.S. programs will include student internships at manufacturing companies, which seven firms have already agreed to sponsor. ***